Adiabatic and Nonadiabatic Energy Transfer in Cold and Ultracold Collisions

The proposal tackles some very difficult yet contemporary problems in collision physics.
Three-body recombination research will be extended to the heavier alkalis (Na, K,
Rb and Cs). A detailed direct comparison of the scattering results when one includes or
excludes nonadiabatic coupling terms and conical intersections will provide new insights
for interpreting observed phenomena. Study of coherently controlled bimolecular
reactions will be extended to include nonadiabatic effects and laser fields. Energy
dependent cross sections will be calculated over a large energy range from ultracold
energies to thermal energies. Threshold behavior and quantum resonances will be
mapped out. The inclusion of electromagnetic interactions will provide cross sections as
a function of laser intensity. The range of laser intensities will be from very weak
intensities to intensities of more than 1012 watts/cm3. Photon-system interactions will
provide a rich enviroment for studying chemical reactions especially at ultracold and
cold temperatures. Time-dependent methods will be developed to watch the flow of
energy among different adiabatic states and regions of configuration space.